Nonlinear Photonic Microstructures

This proposal relates to the investigation of nanostructures for use in lightwaves and photonics. The specific issues which are proposed for investigation include computational simulation, new super-radiant coherent sources, the integration of a laser and a high frequency modulator on the same chip, and the initial investigation of electron beam writing techniques for the investigation of quantum optical devices. The team propagation technique will be applied for the computation of quantum processes and will begin with the calculation with quantum well devices and then will be extended to a calculation of non-linear optical properties of artificial structures by applying this technique to a computation of double Feynman graphs. One possibility is a coherent emitter based upon super-radiant emission. This effort will be pursued jointly with Tadashi Fukuzawa, IBM Research Laboratory, Japan. Simulations have already been carried out for travelling wave GaAs modulators indicating that it is possible to have a response to 40 GHz. If this is so, then it is of interest to have an integrated laser-modulator within a single monolithic structure.